Milagro - A Water-Cherenkov Detector for TeV Gamma Ray Astrophysics

This proposal will add some 172 outrigger counters to Milagro. This new addition will improve Milagro's energy resolution, remove a systematic angular bias, and increase the detector aperture. Funding this proposal will also enable Milagro to identify those gamma bursts with high-energy gamma rays in a timely way so that this information can be broadcasted to other detectors and telescopes for confirming observations.